Nonlinear Dynamics in Chemical Systems

Professor Kenneth Showalter is supported by a grant from the Theoretical and Computational Chemistry Program to continue his studies on nonlinear dynamics in chemical systems. Research will be conducted in three specific areas: 1) he will develop and characterize new chemical wave behavior in open and closed chemical systems; 2) he will develop feedback methods which are capable of controlling chaos in chemical systems; and 3) he will study chemical waves on membranes in capillary tubes. The work will incorporate both experimental and theoretical studies. %%% Nonlinear dynamics has blossomed in the past decade to become what many regard as a genuine scientific revolution, and it is now recognized throughout the natural sciences as a powerful tool for understanding complexity in nature. Chemical systems have played an important role in advancing the field because they are especially amenable to experimental and theoretical analysis, and hence serve as ideal models of more complex biological systems. With this grant Showalter will pursue experimental and theoretical studies to develop a better understanding of dynamical complexity of chemical systems.